Mathematical Sciences: Conference on Groups, Lie Algebras and the Monster; May 24-28, 1996; Columbus, Ohio

9626631 Ferrar This grant supports a conference on Groups, Lie Algebras, and the Monster to be held at Ohio state University in the Spring quarter of 1996. The goal of the five day conference is to foster interactions between mathematicians from the area of group theory and lie theory. Topics to be covered include: quantum groups, vertex operators, modular lie algebras and the sporadic simple groups. This is research in the field of algebra. Algebra can be though of as the study of symmetry in the abstract. As such Algebra has direct applications to areas of physics and chemistry. In particular the modern theory of gauge fields in physics uses this area of algebra extensively. There are also connections to coding theory and the transmission of data across communication lines.